DARPA/NSF Study on Human-Robot Interaction will be held September 29 - 30, 2001 in San Luis Obispo, California

This DARPA/NSF workshop will take place on September 29-30, 2001, on the campus of the California Polytechnic State University, San Louis Obispo, CA. The workshop will provide a forum for roboticists, human- computer interaction experts, psychologists, sociologists, cognitive scientists, and communication experts, to examine the state of the art in the area of human-robot interaction. About 60 participants will be invited from the academic community, industry, and government.